Acquisition of a New Electron Microprobe for the Department of Geology

0112641
Schiffman

This grant provides partial support of the costs of acquiring a new electron microprobe for the Department of Geology at the University of California, Davis. The Principal Investigators are all teaching and research faculty members in the Department of Geology. The P.I.'s, their students, and collaborators will utilize this instrument to further their research on (1) Mafic clay minerals, palagonitization, and biomineralization, (2) Metamorphic geology and tectonics of convergent plate margins, (3) Regional metamorphism and the tectonics of mountain belts, (4) Field and experimental studies in igneous processes, and (5) Thermodynamic studies of minerals and ceramics. In addition, the new electron microprobe will be used extensively by many other investigators in the Department of Geology, as well as the Departments of Chemistry, Physics, Chemical Engineering and Material Science, Agricultural Engineering, Land Air and Water Sciences, and the School of Veterinary Medicine. Although the new electron microprobe will be housed and administered within the Department of Geology, it will be part of a recognized campus-wide analytical facility that is available to researchers across the UC Davis campus as well as from other colleges, universities, and research organizations across Northern California.

***